Discovery Corps Senior Fellowship: Workshops in Chemistry in the Middle East

Roald Hoffmann will lead a series of three workshops on contemporary chemistry themes, with participants drawn from promising young scientists in the Middle East. The intensive workshops will provide an opportunity for the region's future scientific leaders to gain new technical skills, meet US scientists, and develop a peer network. Young scientists from the U.S. will be involved as faciliators and workshop assistants.

This award is cofunded by the Division of Chemistry, the Office of Multidisciplinary Activities, and the U.S. Department of State. The Discovery Corps Fellowship Program is a pilot program seeking new postdoctoral and professional development models that combine research expertise with a service-oriented project. The Discovery Corps Program supports both Postdoctoral Fellows and Senior Fellows.